Computing About Physical Objects

The design, manipulation and control of physical objects involves complex computational models that are tightly coupled. To create and use such models requires an environment that hides intricate details, that harnesses complexities, and that is supported by powerful computers and graphics. This Institutional Infrastructure project at Purdue University is planned to develop tools that integrate design and inspection of computational models of physical objects with simulation and analysis of their behavior and interaction. These tools will create and manipulate the geometric shapes, simulate the physical processes, help control the power of multicomputers, and provide a natural, uncluttered environment for the users. The award will aid in providing the facilities, support staff, maintenance and related costs for developing and experimenting with the large, complex interactive systems. The project is based on ongoing work at Purdue and will utilize new workstations, a tightly-coupled multiprocessor, sophisticated graphics systems and access to a supercomputer system. This project will allow for substantial expansion of the current work in geometric modeling and mathematical software, will strengthen other areas and will, as well, allow for expansion of the graduate program in computer science.